EMT/NANO: Broadcast Optical Interconnects for Global Communication in Many-Core Chip-Multiprocessor

EMT/NANO: Broadcast Optical Interconnects for
Global Communication in Many-Core
Chip-Multiprocessor
Alan Mickelson (Principal Investigator)
Dejan Filipovi´c
Won Park
Li Shang
Manish Vachharajani
Electrical and Computer Engineering
University of Colorado
Abstract:
Computer performance scaling is critical to advances in a wide range of fields, including
medicine, telecommunications, climate science, weather forecasting, engineering, and design.
With the rise of multicore systems and increasing processor-core count as the hardware
mechanism for increased compute power, parallel program performance is now critical to
continue this performance scaling. This work emphasizes latency reduction as this will be
the most important performance impediment as the number of processors increases. Electrical
interconnections can support the large information bandwidth over small distance, for
example, between neighboring processors. Packet switching can share bandwidth between
processors at a cost of latency that increases with inter-processor spacing. This research
involves the use of nano scale optics to implement an optical broadcast network that can
address all processors during a single clock cycle. Media access control will partition information
between the high bandwidth point to point messages to be packet switched and
latency bound synchronization messages to be optically broadcast.
The investigators address the problem of a hybrid on-chip interconnection network both
experimentally and theoretically. The bulk of the experimental work will involve fabricating
and demonstrating the operation of nanophotonic broadcast network. The broadcast
network will consist of a two dimensional slab waveguide region addressed with optical antennas
that are fed and read out from nanophonic channel waveguide components. Optical
sources will be placed off-chip and input to the netwrk through silicon on insulator waveguides.
Wavelength division multiplexing will provide multi simultaneous channel operation
through the single transceiver per processor interconnect. The media access control that
partitions inter processor communication into high bandwidth packet switched communications
and latency bound synchronization messages will be simulated using experimental data
and phenomenological models of the actual interconnection network.